Workshop on Wave Breaking Turbulence '99

Abstract
CTS-9910216
Edwin Cowen, Cornell University

The near shore environment is one of significant importance and complexity. The importance derives from, among other factors, the transport of sediment; the complexity is related to the breaking waves and to the turbulent motions that induce and contribute to the transport of solid material. The importance is attested to by the support of the Office of Naval Research and four independent programs within the National Science Foundation for the subject workshop.

The proposed workshop "Wave Breaking Turbulence", will involve a relatively wide range of experimental, computational and theoretical researchers. It is expected that the presentations and interactions will lead to new insights as a result of bringing together this diverse of investigators. The net outcome will be made widely available on the World Wide Web as a service to the broader community.